Research Experience for Undergraduate Students in Sensor Technologies

This program at the University of Pennsylvania provides nine undergraduate students with research opportunities in the broad area of Sensor Technologies. The goal of the effort is to generate scientific knowledge and to apply this knowledge to sensor development. The REU Site is part of the Summer Undergraduate Fellowship in Sensor Technologies (SUNFEST) program of the University's Center for Sensor Technologies. The Center provides the infrastructure for faculty and students to collaborate, exchange ideas, co-supervise students, and share resources. Students are selected by a faculty committee based on their academic potential, interest in pursuing a research career, attitude towards graduate studies, advisors, recommendations, membership in under-represented groups, and research opportunities in the mother institution. It is anticipated that about half of the students will come from outside University of Pennsylvania. The undergraduate students participate actively in a research project of one or more participating faculty. Special emphasis is placed on the broader interaction of these SUNFEST fellows with the graduate students and faculty members associated with the Center. The projects suggested to the students are chosen for their educational value, scientific merit, and the prospects for continued involvement after the summer. Project topics include: chemical, optical, mechanical, and neural network based sensors; microdynamical systems, phenomena and micromachining; and sensor interfacing. The Center provides an additional $1000 per student as matching funds towards the student stipend. The school also contributes $500 per student to be used for computing facilities, in addition to making facilities and laboratory personnel available.